Evolution of Virulence in a Microbial Host/Parasite System

9615475 WHITTAM Biologists are trying to understand how organisms that cause infectious diseases originate and evolve. Under what conditions do disease-causing organisms become deadlier (more virulent) or "friendlier" (less virulent) to the host? To address this question, the proposed research will examine evolution of virulence in the laboratory of a model system using bacterium Legionella pneumophila (a cause of Legionnaires disease), a parasite in nature of protozoans (amoebae). Laboratory populations of the bacterium and protozoan will be grown together under conditions that favor (or disfavor) invasion of the amoebae by bacteria. Both the ability of the bacteria to invade cells and the degree of host resistance to invasion will be measured as the parasite and host coevolve in the laboratory. The amount of evolutionary change will be compared to identical measurements taken from Legionella and amoebae from natural situations. Genes required for invasion will be studied to test recent theory that predicts how the virulence of parasites will evolve in specific environments.